Returning bison to Blackfeet Nation grasslands: A unique opportunity to advance rewilding science

The American Bison (Bison bison bison) was historically the predominant large grazer in the American Central Plains grasslands, but was nearly eliminated by the early 1900’s. As efforts to reintroduce bison become more common, there is a need to understand the effects of these rewilding efforts on grasslands across bison’s native range. In fall 2026, the Blackfeet Tribal Nation in Northern Montana is planning one of the largest rewilding efforts in the US. This provides a unique opportunity to examine how free-roaming bison affects plant species and their abundances, as well as forage quantity and quality in understudied montane fescue grasslands. This project will use a powerful before-after control-impact grazing experiment to measure grasslands before reintroduction and then monitor changes in grassland plants and forage after reintroduction with and without bison present. In addition, researchers will test whether targeted restoration actions - herbicide application and seeding of native plants - can speed up montane grassland recovery, reduce nonnative plant invasions, and enhance the amount and quality of forage with bison grazing. These data will be combined with remote sensing and analyzed using explainable artificial intelligence (AI) approaches to provide a robust understanding of the role that bison reintroductions can play in advancing biotechnology (i.e., use of bison to restore degraded grasslands) and informing management practices in critical national grazing resources. The project will also contribute to workforce development by training an early career scientist and supporting the education of students in rangeland management, AI-assisted analysis, and biotechnology development.

Most studies on bison impacts have focused on the tallgrass prairie, where few grass species become highly abundant and subordinate species are unable to compete, leading to a loss in species representation when grazers are removed. However, this effect is reversed when grazers like bison are reintroduced, because the dominant grasses are highly palatable and selectively consumed by bison. Thus, by controlling the abundance of the dominant species in terms of their palatability, grazers mediate diversity. However, studies from other grasslands question the generality of this theory. This project will test this theory in an understudied C3-dominated ecosystem that differs greatly from the C4-dominated tallgrass communities that constitute most of the literature. The Blackfeet Tribal Nation (BTN) in Northern Montana is planning to reintroduce free-roaming bison to 26,000 acres of montane fescue grasslands. Researchers will leverage 12 control-treatment plot pairs established throughout the reintroduction area, with control plots fenced to exclude bison grazing. The experimental plots will be surveyed for plant community composition, plant palatability (Dry Matter Digestibility), aboveground net annual productivity (ANPP), plant tissue nutrients and soil nutrients (Total C, total N, and soil organic matter). These data, along with publicly available remote sensing datasets will be integrated using explainable AI modeling techniques, including machine learning, to determine how bison grazing – in combination with targeted herbicide and native plant seeding – can be optimized as a biotechnological tool to increase rangeland health, reduce plant invasions, and enhance forage productivity.